Travel: RI: NSF Student Travel Grant for 2026 IEEE International Conference on Computational Photography (ICCP)

This award supports participation of undergraduate and graduate students from US-based institutions in the IEEE International Conference on Computational Photography (ICCP) 2026, to be held as an in-person event between July 11–25, 2026 at Princeton University, in Princeton, NJ. Now in its eighteenth iteration, ICCP is the premier annual conference dedicated to computational photography, and supports a research community across optics, image and signal processing, computer vision and graphics, and sensors and electronics. The ICCP 2026 program includes keynote and invited talks, paper presentations, poster and demo sessions, and networking events. This program creates rich opportunities for cross-pollination of ideas across research and application areas and provides both junior and senior researchers with an environment where they can engage in brainstorming and mentoring discourse.

This award facilitates the increased participation of students in ICCP 2026, including participation from undergraduate students, students from research areas that are adjacent to ICCP but traditionally do not attend the conference, and students that lack resources to attend research conferences. The award provides travel grants for 20 US-based students, selected through a competitive process: Applications are solicited broadly across the US, and travel grant recipients are selected by a committee of ICCP 2026 organizers. Each travel grant partially covers travel, lodging, and registration costs. Recipient students will attend all elements of the ICCP 2026 program (paper presentations, keynote talks, invited talks, poster and demo sessions, networking events); present their research work as a poster; and participate in a mentoring session with faculty and industry professionals providing research and career development advice. Additionally, recipient students will attend the second ICCP summer school on computational imaging, where they will attend courses offered by world-class instructors on active research topics in computational imaging. Participation in ICCP 2026 will support the students’ career development, providing them with networking opportunities and equipping them with research skills. This increased student participation will additionally benefit computational photography and computing research and will contribute towards next-generation workforce development in the United States, by encouraging recipient students to pursue STEM careers. The aggregate effect will be an increase in the number of active researchers and educators in STEM fields, helping accelerate the research and development of technologies with broad beneficial societal impacts.